Organizational Responses and Household Recovery Following the Northridge Earthquake

Bolin This project is being funded as part of the National Earthquake Hazards Reduction Program's investigation into the causes and effects of the January 17, 1994 Northridge earthquake. The research will, in a multi-site and comparative framework, identify and analyze a comprehensive range of disaster response and recovery issues among victims of diverse ethnic/cultural and socioeconomic characteristics in Ventura and Los Angeles Counties. The analysis will include an examination of the roles of governmental agencies in providing assistance to diverse victim groups concentrating on intermediate to long-term recovery issues. In addition, the role of non-governmental organizations, neighborhood associations, and other locally based organizations that have responded to the recovery needs of victim groups will be documented. ***